Dissertation Research: Seasonal Clonal Succession in Daphnia Populations

Plankton ecology has made considerable progress towards understanding seasonal species succession in temperate lakes. The interaction of predation, competition, and resource quality play a large role in forming predictable, seasonal, changes in species abundance. However, the potential for genotypes (clones) to respond to these same ecological factors within plankton species has not been well studied. Previous research documented a strong pattern of clonal, seasonal, succession in local populations of Daphnia pulcaria. This succession was strongly associated with seasonal changes in population migratory behaviors, the densities of a strong competitor, and the availability of a refuge from predation. The proposed work seeks a mechanistic understanding of clonal succession in D. pulcaria population. Specifically, it will address several questions: 1) How consistently repetitious are seasonal clonal successions in Daphnia populations? 2) Are there quantitative genetic differences among clones in ecologically relevant traits such as habitat use? 3) How do predation (including refuge availability), competition, and resource change affect seasonal clonal succession? 4) finally, how does the frequency of sexual reproduction affect the observed successional patterns? The crustaceans under study here are key members of the food chains of lakes.